Project SAY: Science and Youth

A three-year project, Science And Youth (SAY), integrates the existing curriculum, instructional design, and training capacity of the 4-H Science Experiences and Resources for Informal Educational Settings (SERIES) project with high school students exploring careers in teaching at eleven existing "teaching magnet" high schools across the country. The SAY project expands the quantity and quality of informal science education experiences by accomplishing the following objectives: 1) prepare one thousand teenage teachers/leaders to present SAY activities to forty thousand elementary school age youth: 2) involve participating youth in a total of five hundred community service projects; 3) involve five hundred teenage leaders in mentoring relationships with local scientists, and; 4) have seventy-five percent of the participants continue their education in science and/or the teaching profession. SAY uses a teens-as-leaders model to engage younger youth (ages 9-13) in hands-on, inquiry-based science activities that result in science-based community services projects. SAY offers youngsters a vehicle for experiencing how science problem solving strategies are applied to home and community problems. The pedagogy of the SAY project represents the best of current research on science education, and offers an innovative model for the preparation of a new cadre of science teachers.